Planning IUCRC Case Western Reserve University: Center for High-Assurance Secure Systems and IoT (CHASSI)

This planning grant award will be used to study the feasibility of establishing a multi-university-industry Center for High-Assurance Secure Systems and Internet-of-Things (CHASSI) that will focus on areas where both security and high assurance are necessary to support operations of high mission criticality, due to safety or economic impact. Examples include medical devices, manufacturing, the energy grid, real-time financial markets, construction, and defense. Combining security and high-assurance is hard, however, intentionally combining them will lead to new models, techniques, designs, architectures, and systems that will be applicable across a range of important U.S. industries.

CHASSI has five sites: University of Kansas, University of Minnesota, Syracuse University, Case Western Reserve University (CWRU), and Indiana University. CHASSI research falls into four main thrusts: (1) Architectures, design and formal modeling for systems-level security, privacy, stability, and performance; (2) Secure communication, sensing, and devices; (3) Scalable trust and privacy; and (4) Human behavior for privacy and security. CWRU brings expertise in industrial controls, Internet-of-Things (IoT), Industrial Internet-of-Things (IIoT), and manufacturing and energy applications. Complementary expertise at the other sites includes mission assurance and systems security, assurance of medical devices, networking, cyber-physical systems, mobile security, and human factors.

CHASSI faculty members will gain an understanding of the specific interests and actual needs/barriers of industrial companies. Likewise, companies will benefit from exposure to: cutting-edge university research across all sites; networking with and learning best practices from other industry colleagues in and out of their sector; students who may be potential hires; and faculty that might perform center projects or proprietary research. During the planning period, CWRU will explore ways to advance diversity and outreach with the Women in Science and Engineering Roundtable (WISER) and Women in Technology initiatives through recruiting prospective students, educating current students, and identifying student researchers.

The collaborators from this multi-university-industry Center will host a single Center-wide repository at: http://chassi.ku.edu. This shared repository will include meeting materials, program information, publications, etc., and will be made available for a minimum of five years after the conclusion of the award or until the Center transitions to the next phase.